Support for Students to Attend the 32nd Annual DAMOP Meeting

This award provides support for student attendance at the annual meeting of the Division of Atomic, Molecular, and Optical Physics (DAMOP) of the American Physical Society. The meeting will be held jointly with the Division of Atomic and Molecular Physics of the Canadian Physical Society in London, Ontario, 16-19 May, 2001. This is the principal meeting covering principles of AMO physics held each year, and this award gives students the opportunity to participate in DAMOP sponsored events.